Planning Grant: Study of the Formation of an Affiliate Center for Measurement and Control at the Oklahoma State University

ABSTRACT Oklahoma State University Karen High The objective of this planning grant to the Oklahoma State University is to study the feasibility of formation of an Industry/University Co-operative Research Center (I/UCRC) for Measurement and Control. The Center will operate as an affiliate to the I/UCRC on the same topic at the University of Tennessee. Industry commitments for participation will be obtained, and the research agenda will be developed at an industry/university workshop. The plan for research and management coordination with the I/UCRC at University of Tennessee will be finalized.